Updating Organic and General Chemistry Curricula using FT-NMR Spectroscopy

Chemistry (12). This project is using an FT-NMR to foster curricular innovation in health profession, general chemistry, and organic chemistry courses at a community college. A combination of existing and new green chemistry experiments are being used to create inquiry and research-based experiments across the chemistry curriculum. Faculty and students are collaborating to create a new curriculum that is providing experiences to (1) help students develop a deeper understanding of chemistry and its interrelatedness with other sciences; (2) promote scientific reasoning and collaborative research skills; and (3) increase student interest and confidence in STEM fields. The experiments and pedagogy proposed are involving students directly in course laboratory development and modern research methods. The broader impact is in providing innovative science curricula and current technology to rural, underrepresented groups of students; providing outreach and pathways for new students to enter and succeed in college and pursue STEM fields; and in disseminating the content, pedagogy, and assessments of this project through area partnerships, national meetings, and publications.